Research on the Process of Emerging Technologies

The first objective of this project is to investigate the process of scouting for candidates for emerging engineering technologies, and of assessing them for their potential to become important technologies, with eventual substantial impact on the economy. The second objective of the three-year project is to generate a small list of candidate technologies, perhaps up to twenty, each year, which will be submitted to the National Science Foundation. These candidates will be further evaluated by NSF panels which will recommend the top few technologies that should be supported. The National Science Foundation will make the final selections.